X-ray Crystallography in the Undergraduate Curriculum

Southwest Texas State University is creating an x-ray crystallography laboratory for structure determination of inorganic/organometallic compounds in the advanced inorganic chemistry courses and undergraduate research.Single crystals of interesting compounds are obtained from their own undergraduate research laboratories and those at cooperating institutions